Teen Science Cafes: Technology in Response to Floods Caused by Hurrican Harvey

As part of its overall strategy to enhance learning in informal environments, the Advancing Informal STEM Learning (AISL) program funds innovative research, approaches and resources for use in a variety of settings. The uses of technologies in emergency management and public safety are emerging rapidly, but it could take years for school STEM curricula to catch up with the technologies that are already being deployed in the field. Informal learning environments, such as Teen Science Cafés, provide a compelling venue for youth learning about rapidly-developing STEM fields such as technology. The floods and devastation caused by Hurricane Harvey provide a timely learning opportunity for them. This project, in addition to developing new materials for learning about technologies, will provide much-needed baseline research on teens' understanding of technology, technology careers, and emergency preparedness.

Leveraging the robust platform of the NSF-funded Teen Science Café, the Maine Mathematics and Science Alliance will build upon its existing partnership with Science Education Solutions to develop and implement a package of educational activities, tools, and resources for a Teen Science Café that is focused on community flood events and response, using Hurricane Harvey as a model and case study. The materials will focus on advances in sensor technology, data visualization, social media, and other mobile communication apps used to detect, monitor and respond to flooding and natural disasters. The package of materials will be embraced by 20 sites in Maine. The goal is to engage at least 600 youth in themed Cafés focusing on how technology was used to respond to Harvey and is being used to manage and respond to flooding more generally. An important related goal is to conduct baseline research on what teens currently know about the flood-related technologies, as well as what they learn about it from this experience derived from recent floods in Texas, Florida, and the Caribbean islands.